Updating the Biology and Chemistry Curriculums with a a High Performance Liquid Chromatograph

A more comprehensive and current approach to the teaching of undergraduates in Biology and Chemistry is being made possible with the addition of a High Performance Liquid Chromatography System (HPLC). HPLC is recognized as an instrumental technique of major importance in both biology and chemistry. The project director, who has been actively involved in the development of HPLC instrumentation and software, along with his colleagues, is revising the curriculum in both the biology and chemistry programs so as to provide students with practical, hands-on experience with this fundamental instrumental technique. Seven courses in the two departments are being affected by the project, as well as the independent study and undergraduate research programs. The HPLC system is complementing existing laboratory instrumentation and computer equipment, opening up new learning opportunities.